William Penn College Connections to NSFNET

9312257 Bruxvoort This project connects William Penn College to NSFNET through the MIDNET mid-level network over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years. ***